A Proposal to Provide an LF-HF Programmable Frequency Receiver to the Antarctic Automatic Geophysical Observatories

This investigation will be carried out with very sensitive radio receivers that will be installed at South Pole Station, Antarctica and in one of the Automatic Geophysical Observatories (AGO) that are being built for remote sites in Antarctica. The receivers will operate in the low, middle and high frequency bands (150 kHz to 9.6 MHz). Waves with these frequencies are known to be produced by auroral activity, and have often been observed by rocket and satellite borne instruments. Theoretical studies have indicated that some of these emissions should be able to penetrate the ionosphere and be detectable at ground level, while other emissions would not. The purpose of this project is to test the theoretical predictions and to provide insight into auroral emissions and wave propagation processes. It is necessary to do these measurements in Antarctica because only there would the receivers be sufficiently isolated from manmade radio interference.